Research Site of the Industry/University Cooperative Center entitled, "Repair of Buildings and Bridges With Composites (RB2C)

The proposed research site is an extension to the current active Industry/University Cooperative Research Center entitled: Repair of Buildings and Bridges with Composites (RB2C) located at the University of Missouri-Rolla (UMR). The Research Site of the Center, at North Carolina State University will focus on addressing the needs of the construction industry in development of new innovative structural components and systems using advanced composite materials.